Algebraic K-Theory and Motivic Cohomology

Suslin proposes to investigate topics in motivic cohomology theory. These
topics are of principal importance for the development of the cohomology
theory of schemes and each has seen progress during the recent years in
the works of Suslin and his collaborators. Firstly Suslin plans to eliminate the perfectness
assumption in the basic requirements of motivic cohomology theory and to
define the corresponding tensor triangulated category of motivic complexes over
arbitrary fields. The second topic is an attempt to get a new and clearer
proof of the main duality theorem which would work for schemes over
arbitrary fields (and not only over fields of characteristic zero as the current proof
does). Next Suslin plans jointly with A. Merkurjev to generalize the previous
computation of the motivic cohomology of Severi-Brauer varieties to the case of generic
splitting fields of higher symbols. Probably the most interesting and
important part of the grant proposal is an attempt to compare the
algebraic cobordism theory developed by Morel and Levin with the algebraic
part of the cohomology theory constructed by Voevodsky. Here the plan is
to use the machinery of framed sheaves developed by Voevodsky.

The main objective of mathematics is to provide an accurate picture to the
physical world or at least an appropriate approximation of that picture.
From this point of view algebraic varieties are of principal importance,
first they are relatively easy to understand since they are just defined
by polynomial equations, next they usually give a rather accurate
approximation to other shapes, most importantly they do appear naturally in quite a lot
of subjects from theoretical physics to coding theory. That's why
algebraic geometry - the theory of algebraic varieties is so important for
the development and applications of mathematics. This project is devoted
to the study of certain fundamental problems of motivic cohomology theory
- a relatively new and very quickly developing branch of algebraic
geometry. Geometry is blended with algebra and topology in this part of
mathematics, ideas and methods to be used come equally from all these
directions. As part of the broader impact of this grant proposal let me
point out that I intend to involve graduate students into the work over
some parts of this grant proposal thus allowing them to get into a fast
developing and quite important field of mathematics.